High Piezoelectric Coefficient Ferroelectric Films for MEMS Applications

Piezoelectric thin films are attractive elements in several MEMS applications due to
the large generated force, high electromechanical coupling coefficients, and
substantial charge output that can be generated. This proposal focuses on two
approaches to increasing the performance in piezoelectric MEMS devices: (i) enhancing
the effective piezoelectric response in thin ferroelectric films utilizing in-plane
poled structures and (ii) developing miniaturized flextensional transducers to amplify
the piezoelectric effect. From the scientific standpoint, the program will determine
how the piezoelectric properties of in-plane polarized lead zirconate titanate films
compare to through-the-thickness polarized transducers, as well as any differences in
the way piezoelectric and dielectric properties age and fatigue relative to
conventionally poled films. A processing scheme to enable production of flextionsional
MEMS transducers will also be developed. In addition, a MEMS switch for RF applications
with large displacement (~2 microns) and high-speed (<1microsecond) will be
demonstrated using the d33 coefficient and a flextensional actuation mechanism. The
educational aspects of this program will concentrate on training graduate as well as
undergraduate researchers.
%%%
Microelectromechanical systems (MEMS) are miniaturized devices produced with the same
techniques developed for integrated circuits, and typically range from several microns
to several millimeters in size. Such devices are now widely used in ink jet printers
and automobile air bag deployment accelerometers. Many fields, including miniaturized
biomedical instrumentation for bedside diagnosis, commercial electronics such as cell
phones, and small sensors to detect phenomena as diverse as toxic gases or the imminent
failure of a piece of industrial equipment would benefit from MEMS devices with higher
sensitivities or with the capability of doing more work. This program is designed to
increase the functionality of MEMS systems by exploring the integration of high
performance ferroelectric thin films with motion amplification. This program will also
train and educate scientists in an interdisciplinary research environment in a
technologically-significant area of national importance.